The South East Alliance for Graduate Education and the Professoriate

The proposed SEAGEP Program includes The University of Florida (UF) as lead institution and
two primary partners . Clemson University and The University of South Carolina. SEAGEP
unites three Research Extensive institutions that combined offer PhD degrees in over 50 STEM
fields offering unparalleled opportunities for graduate studies. In 2002, the total STEM graduate
enrollment at these institutions was over 400. Secondary partners are the Florida-Georgia Louis
B. Stokes Alliance for Minority Participation (FGLSAMP), the South Carolina Louis B. Stokes
Alliance for Minority Participation (SCAMP) and the University of the U.S. Virgin Islands.
SEAGEP will also provide international opportunities for students through a collaboration with
the Latin American and Caribbean Consortium of Engineering Institutions (LACCEI) and other
Latin American and worldwide projects. SEAGEP will organize and deliver a comprehensive
program that successfully guides STEM graduate students from underrepresented groups toward
doctoral degree completion and entry into academic careers. The components of the program will
be guided by the design principles suggested by the Building Engineering & Science Talent
organization and will include targeted recruitment activities, bridging activities that prepare
students for the graduate school experience, retention activities that include faculty and peer
mentoring, professional preparation activities for entry into academic careers, and post doctoral
opportunities. The objectives of the program are to:
Increase the number of minority STEM PhD students from underrepresented groups and
prepare them for successful entry into productive faculty careers,
Develop synergistic partner relationships for institutionalizing changes that will continue
to promote diversity in STEM graduate education
Increase the pool of undergraduates from underrepresented groups who are prepared for
entry into graduate STEM fields,
Develop a model to evaluate the effectiveness of the partnership.
The SEAGEP program will be evaluated throughout the five years of the program- using
both qualitative and quantitative methods, including formative evaluation of the program
activities as they are implemented, as well as summative program impact evaluation.
The intellectual merit of SEAGEP is evident in that this Alliance includes a diverse team
well qualified to serve as PIs and facilitators of the activities designed to address the preparation
of doctoral students in creative and innovative ways, thereby increasing the numbers of
underrepresented scholars that earn doctoral degrees in STEM disciplines and enter the
professoriate. SEAGEP has been developed from a thorough understanding of the challenges
inherent in this mission as reported in the literature. Each partner has unique strengths to
contribute and benefits to realize. Through this synergy, SEAGEP will result in national models
for cultural and institutional change, and partnership effectiveness.
The Mission of SEAGEP is to create a regional partnership for enhancing diversity in
higher education by developing innovative and sustainable graduate education programs to
prepare and train students to enter STEM fields and to foster models of institutional cultural
change. When realized, it will provide a direct impact by increasing the number of minority
PhDs and will also result in broader impacts by establishing a model partnership and proven
strategies that will be widely disseminated. SEAGEP will contribute to the development of a
more inclusive, skilled, and versatile technical talent pool, strengthening the diversity of the
Nation.s workforce, particularly academia, thereby contributing to the fields that are critical to
the Nation.s economic strength, national security, and quality of life.